Theoretical Studies of Liquid Crystals and Random Systems

They propose a broad-based program for theoretical study of problems of current interest in condensed matter physics. The major focal points of this program are phase transitions, random systems, and structure of complex surfaces. Particular problems to be addressed include 1) Statistics of fluctuating liquid and solid surfaces including their relevance to properties of complex fluids, 2) Properties of diluted Heisenberg and x-y magnets, 3) Phase transitions in spin glasses, 4) New phases in liquid crystals, and 5) quantum phase transitions. These problems pose questions which are not only of fundamental theroretical interest, but also are related to materials and systems of current experimental interest, including micoremulsions, high temperature superconductors, liquid crystals, spin glasses, helical magnets, and nitrogen adsorbed on graphite.